U.S.-China Cooperative Research: Impacts of Water Column and Sediment-Water Interface Nitrogen Dynamics on Water Quality in Taihu Lake, China

0318794
Gardner

This is a U.S.-China cooperative project between Dr. Wayne Gardner, the University of Texas at Austin, and Professor Yang Longyuan, Nanjing Institute of Geography and Limnology, Chinese Academy of Sciences, proposing to study the impact of water column and sediment-water interface nitrogen dynamics on water quality in Taihu Lake, China. This is important aquatic environmental research and can have a major impact on the control of eutrophication in China and water pollution elsewhere. It provides a U.S. student with international experience in working with counterpart scientists and students and with this unique lake system in China. The project is jointly supported by the National Science Foundation and the Chinese Academy of Sciences.